Applications of Moving Frames

Olver
DMS-0807317

The aim of this project is to further develop and extend the
range of applications of the investigator's equivariant method of
moving frames, for both finite-dimensional and
infinite-dimensional group actions. The specific areas of
research in the proposal are as follows: Development of
computational algorithms for differential invariant algebras,
with particular emphasis on methods for determining minimal
generating sets; exploitation of the invariant variational
calculus based on moving frames to analyze minimizers of
invariant variational problems and the behavior of invariant
submanifold flows, focusing on the evolution of differential
invariants and their signatures; algorithms for analyzing the
structure of symmetry pseudo-groups, their use in classifying and
finding explicit solutions to nonlinear partial differential
equations, with applications in fluid mechanics, gauge theories,
integrable systems, and meteorological models; further
development of practical tools for object recognition and
symmetry detection in digital images based on differential
invariant and joint invariant signature methods; and exploration
and application of new invariant numerical algorithms for
integrating nonlinear differential equations and approximating
differential invariants such as curvatures, torsion, etc.

Exploitation of symmetry, equivalence and invariance
properties remains one of the most important mathematical methods
for tackling the complex nonlinear systems that arise in a wide
variety of applications. The investigator's reformulation of the
geometrically-based method of moving frames has led to a wide
range of new and, as yet, underexploited computational tools, as
well as new and unexpected areas of application, including
computer vision, recognition and surveillance, materials science
and physical gauge theories, fluid mechanics, interface flows,
DNA mechanics, relativity, and elsewhere. The project continues
to develop this powerful new approach to analyzing very general
group actions and their invariants, directly driven by current
needs in these areas of application.